Developing STEM Skills through Play and Exhibit Design for Early Learners in Children’s Museums and Science Centers

The Advancing Informal STEM Learning (AISL) program seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. An ongoing challenge to the design of effective STEM learning exhibits for diverse young children is the absence of reliable and evidence-based resources that designers can apply to the design of STEM exhibits that draw upon play as a child’s primary pedagogy, while simultaneously engaging children with STEM content and processes that support development of STEM skills such as observation. To address these challenges, the project team will use a collaborative process in which learning researchers and informal STEM practitioners iteratively develop, design, and test the STEM for Play Framework that could then be applied to the design of STEM-focused exhibits that support play and STEM skill use among early learners.

This Research in Service to Practice project will address these questions: 1) What is a framework for play in early STEM learning that is inclusive of children’s cultural influences?; 2) To what extent do interactions between early learners (ages 3-8) and caregivers or peers at exhibits influence the structure and effectiveness of play for supporting STEM skill development?; 3) How do practitioners link play to STEM skill development, and to what extent does a framework for play in early STEM learning assist in identifying types of play that supports early STEM skill development?; and 4) What do practitioners identify as best practices in exhibit design that support the development of STEM skills for early childhood audiences, and conversely, to what extent do practitioners perceive specific aspects of the design as influential to play? The project team will address these questions across four phases of study that will include (a) development of a critical research synthesis to inform the initial STEM for Play framework; (b) the use of surveys, focus groups, and interviews to solicit feedback from practitioners; (c) testing and revising the framework by conducting structured observations of STEM exhibits at multiple museums. The project team will use multiple analytic approaches including qualitative thematic analyses as well as inferential statistics. Results will be disseminated to children’s museums, science centers, and research communities.